Transport and Magnetic Properties of NS Structures

9801982 Chandrasekhar This experimental condensed matter physics project addresses the fabrication and characterization of normal metal (N) - superconductors (S) structures whose dimensions are comparable to the fundamental coherence lengths in such materials. The electrical conductance and other properties of these nanostructures are predicted, and observed, to display non-classical and surprising behavior. This experimental project will extend our knowledge of the superconducting proximity effect by conducting the first measurements of the thermoelectric and magnetic response of NS structures. In the first part of the project, the energy and length dependence of the electrical conductance of normal wires in contact with a superconductor will be investigated in order to verify fundamental predictions of the theory of NS devices. The second part of the project is devoted to measuring the thermopower of so-called Andreev interferometers, which are loops in which one arm is fabricated from a superconductor and the other from a normal metal. In the last part of the project, the magnetic response of isolated Andreev interferometers will be measured using dc SQUID magnetometers. These last two properties have not been extensively studied, and their measurement should further our understanding of the correlations induced in the normal metal by its proximity to a superconductor. The samples for these experiments will be patterned and fabricated using electron-beam lithography. Their low temperature transport properties will be investigated by linear and nonlinear multiprobe differential resistance measurements as a function of temperature and magnetic field. The low temperature magnetic properties will be measured using ultra-sensitive dc SQUID magnetometers. Post-doctoral associates and graduate students trained on this project will be exposed to a wide variety of experimen tal techniques which will be useful in future careers in either industry or academia. %%% This experimental condensed matter physics project addresses the fabrication and characterization of ultra-small normal metal (N) - superconductors (S) structures. Superconductors have unusual electrical and magnetic properties at low temperatures, the best known being their ability to carry an electrical current without resistance. These properties form the basis for a number of practical devices such as very high field magnets. When a superconductor is placed in good contact with a conventional normal metal such as copper or gold, some of the superconducting properties "leak" a very small distance into the normal metal. With modern lithographic techniques borrowed from the semiconductor industry, it is now possible to probe the properties of normal metals on these very small size scales. The aim of this project is to investigate the electrical, thermoelectric and magnetic properties of such small normal metals placed in close proximity to a superconductor. In the first part of this project, the electrical properties of normal metal wires in proximity to a superconductor will be studied to verify and further our current theoretical understanding of the nature of the superconductivity induced in the normal metal. In the second and third parts of the project, the consequences of this induced superconductivity on the thermoelectric and magnetic properties of the normal metal wires will be explored. These last two properties have not been yet been studied experimentally, and these measurements will help us gain further insight into the interaction between superconductors and normal metals on very small size scales. The samples for these experiments will be fabricated using advanced electron-beam lithography techniques, and measured using sophisticated resistance and magnetic sensors a t temperatures near absolute zero. Post-doctoral associates and graduate students trained on this project will be exposed to a number of experimental techniques which will be useful in future careers in either industry or academia. ***